WORKSHOP: Scaling Photosynthesis from the Chloroplast to the Landscape (Aug. 18-23, 2001 in Brisbane Australia)

Workshop: Scaling photosynthesis from the chloroplast to the landscape

Understanding the interactions of plant form and photosynthetic function among different species will be critical to the success of future management of both native and agricultural species, especially under current scenarios of global change. The purpose of this workshop is to evaluate photosynthetic limitations and adaptive solutions that emerge at the higher levels of structural organization found in the plant kingdom. The workshop will be held in conjunction with the 12th International Congress on Photosynthesis in Brisbane, Australia (August 18-23, 2001) and will be divided into sessions dealing with the chloroplast, cell, cell layers inside a leaf, the leaf, crown, canopy, and landscape. Across this broad structural/spatial hierarchy, chloroplasts are packaged progressively into more and more complex levels of organization (e.g. cells, leaves, branches, and crowns), generating new limitations to light and CO2 capture for photosynthesis.